Mathematical Sciences: Harmonic Analysis for Infinite Dimensional Groups

This award provides supplementary travel support to Professor Douglas Pickrell, who now holds a Mathematical Sciences Postdoctoral Research Fellowship. His project is part of an effort now underway in many quarters to extend concepts and results long familiar in the study of Lie groups to objects of a much more exotic sort. An example of a Lie group in the usual sense is the group of all rotations of a sphere, where the group operation consists of following one motion by another. Detailed knowledge of the rotation group is extremely helpful in the analysis of any mathematical or physical situation where spherical symmetry is present. It is an important feature of this group that we need only a finite number of parameters (in this case three) to specify any of its members. If now instead of rigid motions we look at all smooth transformations (diffeomorphisms) of the sphere, the situation becomes infinite-dimensional. Such groups of diffeomorphisms are typical of the structures that Professor Pickrell will focus on in his research. Many of the same questions that make sense in the traditional setting also make sense infinite-dimensionally, but the intellectual tools that must be used in answering them are radically different. Recent developments in theoretical physics do much to set the agenda and provide insight in this new area of mathematical research.